Interorganizational Relations for Disaster Preparedness

There is very little research on emergency preparedness during periods of routine operations. Most studies concentrate on the immediate response during post-impact disaster periods but pre-event linkage patterns are important for understanding response actions. Research is needed that accurately describes the normally established multiorganizational networks of community preparedness across functional areas such as search and rescue, food provision, medical supply stockpiles, public shelters, and mobilization of volunteers in conjunction with other emergency personnel. The goal of this research is to strengthen disaster preparedness by deepening and refining the understanding of how organization work together. The study will examine the underlying processes producing the patterns of interorganizational relations in the preparedness network of St. Louis, Missouri, an area which is at risk to many types of hazards including earthquakes. The empirical focus of the study will be on the system of negotiations that underlie the definitions of resources and responsibilities among a sample of organizations for meeting the needs of disaster victims. The study has implications for large urban areas in the U.S. threatened by natural hazards.